Incorporating Molecular Biology into the Undergraduate Curriculum

9452280 Jardim The biology curriculum at a community college is significantly strengthened through attention to biotechnology. Students investigate biological phenomena at the molecular level via performing a series of "hands-on" innovative laboratory experiments, including the following: cloning with pAMP and pKAN fragments; amplifying of DNA by PCR; and electrophoresis and spectrophotometric analysis of DNA. More than 600 majors and non-majors enrolling in four different courses-General Biology, Introduction to the Science of Living Organisms, Genetics Laboratory, and Introduction to Human Physiology--are enriched by this project each year.